Maskless Solid Freeform Fabrication of Dense Metal Micro- and Meso-Scale Structures

Motivated by a desire for flexible manufacturing of functional small-scale 3-D devices, a program of research aimed at creating an automated, freeform micro/meso-scale fabrication system is described. The system is founded on the use of state-of-the art electrochemical microfabrication techniques combined with solid modeling and layered fabrication technologies. Each layer of the build is comprised of regions containing material to be retained and sacrificial material. Selective electrodeposition of alloys of varying composition provides a basis for selecting between which region will be retained and which will be sacrificed upon a final etch step. Thus, the proposed system shares some similarities to existing layered manufacturing systems, in that, it fills areas devoid of build material with sacrificial material so that no support structures are needed. This research project will address the scientific and engineering challenges inherent in realizing a microfabrication system that does not rely on physical mask sets, but offers flexible fabrication of fully dense micro-scale metal parts, production of parts with 3-D freeform surfaces, using metals with structural, magnetic, and inert functionality. This can provide the direct fabrication of assemblies and compliant mechanism.

The first generation system will by 100 um, but the technology is scalable. The specific aims of the research include: (1) the design and microfabrication of a software reconfigurable deposition head, (2) process characterization and path planning that takes advantage of the unique properties of the head, (3) development of a suite of materials suitable for used with the new fabrication system, and (4) fabrication of new classes of meso/micro-devices.